Collaborative Research: High-Throughput Exploration of Microstructure-Sensitive Design for Steel Microstructure Optimization to Enhance its Corrosion Resistance in Concrete

Corrosion of carbon steel in concrete is the most common and costly deterioration mechanism of steel-reinforced concrete structures. Corrosion costs in US are equivalent to about 3 to 4 percent of the gross domestic product (GDP). The annual cost of corrosion of just highway bridges to the US economy is estimated to be US$23-31 billion. Furthermore, corrosion reduces the lifetime of civil infrastructure and leads to increased use of material. This, in turn, increases the carbon footprint of the construction industry and affects climate change mitigation strategies. Thus, it is critical to develop and utilize innovative, inexpensive, and effective corrosion-resistant steel to minimize this burden on the US economy and on the environment. Carbon steel is the most used reinforcing material in concrete due to its availability and low cost. The central hypothesis underpinning this collaborative research project is that the carbon steel microstructure can be optimized to enhance its corrosion resistance in a concrete environment. Studying the quantitative correlations between microstructure and corrosion properties is challenging since the corresponding microstructure design space is very large. Traditional design approaches are woefully inadequate for systematically exploring such large design spaces and identifying optimal solutions. Microstructure-sensitive design and materials knowledge systems employ a comprehensive and quantitative microstructure treatment, which together with emergent machine learning tools can address the grand challenge described above. An equally important and novel component of this project lies in exploiting high-throughput strategies to collect and curate high-value experimental data. In order to address this need, novel high-throughput strategies, both in synthesizing material sample libraries spanning a wide range of distinct microstructures and evaluating their microstructures and corrosion performances, will be designed and implemented. This research aims to have far-reaching social, political, and economic impacts by enabling researchers and material developers with the fundamental tools to hypothesize, design, optimize, and test new materials to mitigate issues associated with steel corrosion in reinforced concrete structures in a cost-effective way.

The scientific novelty of the approach lies in its ability to predict the influence of the microstructure of carbon steel on its corrosion performance. These insights can be used to tune the microstructure to optimize the corrosion resistance of the steel without changing the steel chemistry. The main impetus for this research comes from the need to (1) elucidate the poorly understood linkages between corrosion and the microstructure of carbon steel in an alkaline concrete environment, and (2) bridge a critical knowledge gap related to optimizing the microstructure-sensitive corrosion resistance of steels. This work is focused on four thrusts: (1) high-throughput synthesis of samples, (2) high-throughput characterization of corrosion performance, (3) microstructure feature engineering and building machine learning models, and (4) designing and fabricating steel with an optimal microstructure.